Aligning the Science Teacher Education Pathway. A Networked Improvement Community

California State University will study the activities of a Networked Improvement Community (NIC) as a vehicle to bridge gaps across four identified steps along the science teacher training and development pathways within local contexts of 8 participating universities (NIC sites). Networked Improvement Community (NIC) will co-create a shared vision and co-defined research agenda between university researchers, science educators and school district practitioners working together to reform teacher education across a variety of local contexts. By studying outcomes of shared supports and teacher tools for use in multiple steps along the science teacher education pathway, researchers will map variation existing in the system and align efforts across the science teacher education pathway. This process will integrate an iterative nature of educational change in local contexts impacting enactment of the NGSS in both university teacher preparation programs and in school district professional training activities and classrooms.

The overarching goal of the project is to strengthen the capacity of universities and school districts to reliably produce teachers of science who are knowledgeable about and can effectively enact the Next Generation Science Standards (NGSS), although prepared in varied organizational contexts. The project will accomplish this goal 1) leveraging the use of an established Networked Improvement Community, composed of science education faculty from eight university campuses and by 2) improving and studying coherence in the steps along the science teacher education pathway within and across these universities and school districts. The project will use a mixed methods approach to data collection and analysis. Consistent with Improvement Science Theory, research questions will be co-defined by all stakeholders.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.